Deformation, Phase Segregation and Adhesion of Lipid-Bilayer Vesicles

Bhattacharya
DMS-0606667

The investigator seeks to study partial differential
equations that describe the equilibrium and evolution of the
shape, phase distribution, and adhesion of lipid bilayer
membranes. An intricate interaction between the shape, the
composition distribution, and pressure enable these membranes to
undergo a variety of composition- and ordering-related phase
transformations resulting in complex microstructure. These in
turn affect the function of the membrane. The experimental study
of the mechanics, phase segregation, and adhesion of bilayer
membranes is an extremely active and fascinating field. A number
of theoretical models and studies that consider different aspects
and different approximations are beginning to emerge. This has
set the stage for a systematic mathematical analysis that
examines the relationship between the different models,
understands the status of the various approximations, and yields
a mapping of the different parameter and behavioral regimes.
This mathematical analysis is the aim of this project. The
investigator seeks not only to catalog and reconcile available
experimental observations but hopes to motivate new experiments
and the discovery of new phenomena by pointing out potentially
interesting regions. The project builds on and extends the class
of mathematical problems involving diffusion, phase
transformation, and pattern formation that has been studied in
flat spaces, motivated by issues in materials science, to a new
class of problems that involve these phenomena on deformable
manifolds. The investigator starts with an energetic formulation
of the single phase membrane and derives limiting theories using
both formal (matched asymptotic) and rigorous (Gamma convergence)
methods. He then considers multi-species membranes and
identifies circumstances when there is strong phase separation,
studies nucleation from stability considerations, and derives
sharp interface models. Evolutionary problems are treated as
gradient flows of appropriate energy. Finally, he studies the
implications of this analysis for cell adhesion.

Lipid bilayer membranes are ubiquitous in living organisms
as cell walls, mitochondria, golgi apparatus, and numerous other
important organelles. They play a critical role in biology as
they protect, regulate flow, and host many metabolic functions by
forming a variety of complicated shapes and structures. This
project seeks to advance our understanding of the factors that
govern the shape and composition distribution of these membranes.
It does so by building mathematical models based on existing
observations and using mathematical analysis to explore the full
implications of these models. The project provides for the
training of a doctoral student in this critical and emerging
interdisciplinary area. The student is trained in and uses
contemporary methods of mathematical analysis, but also is
exposed to experiments in biology and theories in mechanics and
materials science. The project also trains three summer
undergraduate research students.